Conference: NSF CISE CPS Workshop: A Roadmap for AI-enabled CPS and the Emerging Dimensions of Intelligent Control

This project brings together about 50 leading researchers and innovators in cyber-physical systems (CPS), artificial intelligence (AI), control theory, mechanics, and related fields. They will participate in a multidisciplinary workshop to develop and document a ten-year research roadmap for the next generation of intelligent CPS. They will discuss advances in control theory, runtime assurance, embodied AI, systems engineering, and applications. These applications include autonomous transportation, manufacturing, and power grids. This workshop is part of a series of workshops on future directions in the theory of cyber-physical systems and its applications to real-world challenges.

The workshop focuses on two connected challenges. First, it examines how to ensure that learning-enabled control systems remain trustworthy, safe, and accountable. Second, it explores how to divide control responsibilities among distinct physical systems to create architectures that are simpler, more affordable, and more resilient. As machine learning and deep neural networks, particularly large language models, rapidly integrate into physical infrastructure, traditional mathematical and statistical assurance methods face fundamental limits in safety-critical settings.